National Net '88

The FCCSET Committee report on a National High-Performance Computing Initiative was delivered to the United States Congress on November 20, 1987, although the basic content of the section on Networking had been widely known since early summer. The report recommends creation of a national data network to support scientific research and scholarly activities in a three-tiered approach that coordinates and expands existing networks of the Federal Agencies that support research, while carrying out the research, development, and pilot deployment of the "gigabit network". Community support, in the broadest sense, will be needed to carry out so large a project successfully. In this proposal, Richard Mandelbaum of NYSERNET, Inc. proposes to hold a large- scale planning conference with collaboration from EDUCOM, to plan various aspects of design, construction, and use of the network including, for example: * appropriate level of access,and relationship to commercial X.25 networks; * suitability of SURANET or NYSERNET as a model for a national net; * models of industrial participation; and * funding mechanisms, including the partition of funding among the Federal government, state and local governments, and end-users. Participants will include university presidents and provosts; representatives of industry, especially telecommunication companies, financial institutions, and firms with large R & D investments; and government officials from national laboratories, public utility commissions, state boards of regents, and legislative committees.